Polymer-in-Pore Composite Membranes

This research offers a new and novel approach for the development of high-technology materials in the separations field, namely, a multidimensional route to the significant problem of synthetic membrane design. It follows naturally the highly regarded recent research of the PI and his co- workers who, through their work, have advanced the field of surface science and membrane technology. The novelty of filling a membrane pore matrix with a polymeric substrate which offers the possibility of high specificity and selectivity along with high flux rates is the primary target of most membrane development research within the separations area. Specifically, the PI proposes to prepare high selectivity membranes by generating hydrogels within the pore matrix and by adsorption of block co-polymers on the pore wall structure. The fundamental studies herein proposed will be to quantify the resulting mated matrix with the ensuring field enhanced mass transport via continuum convection, diffusion, and by electrophoresis. The research proposed, although logical and inclusive (i.e., the research progresses from the preparation of membrane materials to the experimental data collection phase, from which the quantitative aspects of the characterization of the basic processes via analysis of the matrix substrate leads to theoretical model development) it is not fully detailed. The PI must consider the ultimate stability of the matrix substrate, the potentially manifold mating problems inherent in substrate-matrix surface interaction, and the selection of appropriate test materials for the study. The work, although fundamental in nature, has some very definite practical applicability toward the long sought goal of tailoring membranes for specific separation problems of industrial significance. Thus, despite the relative paucity, of experimental detail included in the proposal, the PI has an outstanding record of research achievement and this work, though somewhat speculative, has the potential for major contributions to the field of molecular separations. This is of especial interest to the area of synthetic and biological macromolecules.